Faculty Advancement In Mathematics (FAIM)

Mathematics is undergoing remarkable advances, the scope of mathematical applications is broadening into new disciplines, reaching a more diverse student population. Courses and other educational experiences for prospective mathematics teachers at all levels provide an important wedge that will help bring about this revolution in the undergraduate curriculum. Just as many current college faculty are not in a position to infuse contemporary mathematics and its applications into their teaching, many undergraduates who are currently preparing to teach at the elementary and secondary levels are also not sufficiently aware of important current mathematics. It is important that the presence of contemporary applications of mathematics be increased in the undergraduate preparation of those who will teach at all levels. To address this opportunity and challenge, workshops are scheduled for the summers of 1996 and 1997. These workshops will each be of two-week duration, with 25 participants per workshop. The workshops in 1996 will be held at Virginia Commonwealth University and the United States Military Academy. The focus of each workshop will be contemporary applications of mathematics in the broadly defined areas of mathematical modeling, discrete mathematics, and geometry. They will feature mathematical topics of increasing emphasis and importance.